Discrete Vortex Models of Turbulent Flows

9311545 Aref Research is to be conducted on the interaction between multiple vortices. These interactions are relevant to the dynamics of turbulence. The approach is primarily numerical and partly theoretical, based on tools from dynamical systems theory, physical kinetics, and renormalization group theory. Numerical modeling will be from Direct Numerical Simulations. Results will have relevance to various aspects of turbulent flow, particularly the fragmentation and merging or reconnection of embedded vortex structures. Clarification of such mechanisms will impact the development of more rational models for predicting turbulent flows in various areas of engineering. ***